Crustal Scale Fluid Flow During Continental Collision in the Southern Alps, New Zealand

9316405 Chamberlain An understanding of the driving forces for regional-scale fluid flow requires knowledge of the relationship between thermal and structural development of a collisional orogen and the generation and flow of fluids. This project will test a recent model proposed for the Southern Alps of New Zealand that involves large-scale hydrothermal systems produced by the rapid uplift associated with continental collision. The work will use stable isotopic and geochronological data to test various predictions of this model. Results will help determine the timing and evolution of the flow system and its relationship to the structural development, and will have considerable impact in understanding fluids in other orogens.